Mathematical Sciences Computing Research Environments

9506575 Fan The Department of Statistics at the University of North Carolina at Chapel Hill will purchase computer equipment which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects, including in particular the following: 1. "Analyzing High-dimensional Data", by Jianqing Fan; 2. "Simulation and Computation in Hierarchical Modeling for Microstructure of Certain Brittle Materials", by Chuanshu Ji; 3. "Smoothing Methods in Interdisciplinary Work", by James Stephen Marron; and 4. "Greedy Growing and Pruning of Smoothed Regression Trees", by Andrew B. Nobel.